SBIR Phase I: Comfortable, Easy-to-Insert Hearing Protection Earplug

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project is a novel hearing protection device which reduces the societal cost of noise induced hearing loss. Noise induced hearing loss is the one of the most prevalent occupational injuries in both US industry and the military, affecting more than 10 million workers at a total preventable economic cost exceeding $100 billion. Most employers rely primarily on personal hearing protection devices to limit exposure on a sustained basis. However, issues limit their real-world performance and leave a majority of wearers with sub optimal protection. Up to 80% of workers wear hearing protection in an inconsistent manner which significantly reduces their effectiveness. This project aims to develop a novel passive hearing protection device which significantly increases hearing protection by incorporating a pass-through communications channel in a form factor that enables proper insertion, comfort, and convenience, and is suitable for long term use and compliance.

This Small Business Innovation Research (SBIR) Phase I project will develop an earplug that incorporates a novel geometric design and materials to provide unique, tailored physical and acoustic properties. The design significantly increases sound reduction while preserving frequency balance and speech intelligibility to accommodate pass-through communications, in a form factor that enables greater comfort and convenience than traditional devices. Theoretical modelling of sound attenuation will be translated into prototypes that demonstrate performance measures in laboratory test fixtures, followed by a patient validation study. The project aims to demonstrate that the company’s new ear plug provides superior sound protection of up to 40 dB suppression while enabling improved communication. Incorporation of attributes preferred by users enables greater adoption compared to existing designs.